Secondary Reactions of Prompt Biomass Pyrolysis Liquids

The broad goal of the research is to improve existing understanding of the thermal reaction behavior (including stoichiometry and kinetics) of four industrially important renewable materials: wood and its three major constituents (cellulose, hemicellulose and lignin), with emphasis on secondary reactions of pyrolysis tars from wood. The specific thrusts of this effort are: systematic studies of the rates and extents of extraparticle secondary reactions of freshly formed wood pyrolysis liquids including examination of both vapor phase and vapor-solid reactions, the latter probably focusing on effects of wood char; and exploratory studies of intra-particle secondary reaction phenomena including liquid phase reactions, molecular weight growth, and char-forming processes. These studies are expected to provide key kinetic parameters and stoichiometric coefficients to further ultimate objectives of better understanding of the thermal reaction behavior of large dimension biomass particles and of developing mathematically tractable whole biomass simulation theories.